Young Investigator's Participation in the 6th International Meeting on Chemical Sensors

ABSTRACT CTS-9531278 Funding is provided to support the participation of young investigators in the Sixth International Meeting on Sensors to be held July 22-25, 1996 in Gaithersburg MD. ***